An Exploratory Study of Parallel Molecular Computation

This Small Grant for Exploratory Research (SGER), jointly funded by the Theory of Computing (TOC) Program, CCR and by the Informations Technologies Office, DARPA, addresses problems in the new area of Biomolecular/DNA Based Computation; in particular, in the area of parallel molecular computation (PMC), massively parallel computation at the molecular scale. The goals of this SGER project include:(1) Exploring possible implementations of PMC;(2) Assessing the feasibility of the PMC implementations; (3) Empirically determining the parameters of performance (e.g., time, volume, etc.) of PMC for some set of applications;(4) Doing trial recombinant DNA implementations of such key operations as: (a) parallel memory read and write, and (b) parallel arithmetic on small integers;(5) Planning a study of the implementation of a biological application of PMC with small or at most moderate I/O and volume requirements. In addition, one of the goals of this SGER award is to foster to facilitate a multidisciplinary effort between the Computer Science Department, the Duke Center for Molecular Diversity and the Microbiology Department of Duke University.***